The Synthesis of Titanium Aluminide with Carbon Addition as a High Coefficient of Thermal Expansion Fiber Utilizing Plasma-Assisted Chemical Vapor Deposition

New high expansion thermally stable multifilament fiber reinforcements are key to developing significant advances in composite materials. It has been identified that titanium aluminides allayed with carbon is a highly desirable high coefficient of thermal expansion, thermally stable materials for reinforcing aluminide intermetallics and other matrices. Conventional fiber forming methods including thermal chemical vapor deposition (CPD) has not produced the desired composition of titanium aluminide allayed with carbon. Recently plasma assist CVD (PACVD) has been demonstrated to produce aluminide intermetallic particles and multifilament fibers of TiB2, SiC and TiC on multifilament substrates of graphite, quartz and molybdenim wire. The PACVD process is explored here to produce titanium aluminide allayed with carbon fibers on multifilament substrates of graphite and other substrates. Metal evaporation and CVD are combined in a plasma to synthesize titanium aluminide allayed with carbon as a fiber material.